Conference on Nondestructive Evaluation of Civil Structures and Materials

This project is the Second Conference on Nondestructive Evaluation of Civil Structures and Materials. The conference will be held at the University of Colorado, on April 13, 14, and 15, 1992.